Mathematical Sciences: Commutative Algebra, Algebraic Geometry, and Computational Issues

This research is concerned with problems in commutative algebra, algebraic geometry and computational issues in those fields. In commutative algebra, the principal investigator will study linear resolutions and Huneke's question on the structure of free resolutions. In algebraic geometry, he will consider a generalized Castelnuovo conjecture, the family of compactified Jacobians by projective stability, degeneracy of secant and tangent varieties by methods from differential geometry, as well as ribbons, K3 carpets and supermanifolds. The computational parts of this project are concerned with criteria for systems of parameters and development of the computer algebra system, Macaulay. This is research in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origins, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays, the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields, as well as, in theoretical computer science and robotics.